Linking Middle & Early High School Science & Mathematics Assessment Items to Local, State & National Content Standards

The project will develop a bank of mathematics and science assessment items and related tools aligned with state and national content standards that will be available to test developers, curriculum developers, researchers, teachers, teacher educators, parents and students. Building on the work of a previous grant that developed a process for analyzing assessment items related to national standards, this work will develop items that are not aligned to any particular materials development project, but focus instead on major ideas and themes in the standards' documents. Specific tools will include a bank of about 300 test items, 16 assessment maps (10 in science, 6 in mathematics) and the inclusion of materials that target students with English as a second language.